A Program in Medium-Energy Nuclear Physics

The NSF-supported Program of Medium Energy Nuclear Physics will allow the nuclear physics group at the University of Illinois at Urbana-Champaign to continue to lead and contribute to high-impact experiments in international nuclear physics research. The research program fea-tures two major themes, namely 1) The Structure and Formation of Hadrons, and 2) Fundamental Symmetries and the Standard Model. The physics pursued by experiments in this program will help answer questions such as, "How is the proton built?" and "Is the current particle physics standard model correct?" Specific activities include the following major, established international experiments: G0, HERMES, MuLan, MuCap, PHENIX, E906-Drell-Yan, MuSun, Daya Bay, nEDM, g-2, and Mu2e. The first four of these have completed data taking and all activities of the group are related to data analysis and publication preparation. The other experiments are running or are in design or construction phases.

In addition to direct physics research outcomes, the group has reached beyond the laboratory to make significant contributions to education and outreach and will continue to do so. Research projects contribute substantially to the education of a large number of postdocs, graduate, and undergraduate students. Outreach efforts, such as a major contribution to the literature and public appreciation of the Physics of Baseball, continue to receive broad appreciation.